Regional Capabilities and Partnerships to Conduct Global Change Research

9729933 Spilhaus This is just a brief abstract so that I may continue with the processing of the award jacket. The actual abstract will be done by Lou Brown today. ***